ROW: Neural Network Structures in Communications and Information Processing

The goal of the program is to develop research activities in the design of neural network structures in the implementation of distributed processing of stochastic data, dictated by statistical techniques. The processing is to be directed at the basic operations common to communications, information, and decision oriented system: detection or hypothesis testing and parameter estimation. Probability of error, generalized Chernoff bounds and related parameters will be used as performance criteria. Establishment of a group of researchers in this area is a secondary goal.